Deep Seismic Reflection Profiling of the Central Andes: Phase I

9417944 Allmendinger This is a proposal for the first phase of a two phase project which will culminate in the collection of a deep seismic reflection profile across the Central Andes. The goals of Phase 1 are: 1) Organize a Workshop on opportunities for deep seismic reflection profiling in the Central Andes. The purpose of the workshop will be to identify and prioritize possible reflection transects across the Central Andes and to organize the multi-institutional scientific team which will be responsible for Phase 2; 2) Inspect and reprocess selected industry reflection data, including extended correlation of VIBROSEIS data, to evaluate the reflection data quality potential along the high priority routes in the field area; 3) Scouting of routes and logistics along the high priority transects. Phase 1 will provide the necessary groundwork for Phase 2, the acquisition of new deep seismic data. ***